Minority Graduate Research Honorable Mention - Marina Rodriguez

This special award will give Ph.D. student Marina Rodriguez additional flexibility in pursuing her graduate studies and research initiation in plant genetics and tissue culture. This award will strengthen minority research participation in this area.